Detection and Warning of Imminent and Actual Bridge Collapse

Recent failures of highway bridges have drawn attention to the deterioration of the bridge structure and the inherent possibility of total collapse. As a result of two recent bridge collapses, fatalities have occurred which have cost the State Highway Departments considerable sums of monies to replace and compensate victim related claims. This project will investigate the use of sophisticated sensing devices and electronic equipment to warn motorists of an imminent or total collapse.